SGER: Seawater Calcium Isotopes and Carbonate Deposition History

Seawater Calcium Isotopes and Carbonate Deposition History

ABSTRACT

Changes in the amount of carbonate precipitation and dissolution have significant effects
on oceanic alkalinity, total CO2, and atmospheric CO2, thus climate. Knowledge of the
carbonate depositional history is important for understanding the global calcium and
carbon cycles and may lead to improved understanding of global biogeochemical cycles
operation on Earth on various time scales and the potential feedback mechanisms in these
cycles and their effect on climate. The calcium isotope ratio is seawater at any given
time is largely controlled by biological precipitation of calcium carbonate, a process that
discriminates against heavy isotopes. This fractionation causes seawater to be enriched
in heavy calcium relative to the average isotopic ratio of input sources to the ocean.
Therefore, reconstruction of seawater Ca isotope ratio could lead to an estimate of the
fluctuations in the amount of calcium carbonate deposited in the oceans through time and
to better understanding of the calcium and carbon cycles. Accordingly, the main
objective of this SGER proposal is to explore the potential of the mineral barite separated
from deep-sea sediments to trace the variations in seawater Ca isotope ratios, and to
evaluate the use this proxy for reconstruction of the calcium carbonate deposition history.

This work fits the criteria for a SGER proposal as it seeks partial support for conducting
preliminary work of an untested and novel idea it is a high risk project and applies newly
developed tools (so far only two labs in the USA measure Ca isotopes routinely). Results
if encouraging will provide a basis to perform further more detailed research that will
advance our understanding of the global biogeochemical cycle and its coupling with
climate and contribute significantly to the field of paleoceanography and earth history.